Information Technology in the Integrated Civil Engineering Curriculum

PROPOSAL NO.: 0228099
PRINCIPAL INVESTIGATOR: Grigg, Neil
INSTITUTION NAME: Colorado State University
TITLE: Information technology in the integrated civil engineering curriculum

Abstract

The proposal is to plan for integration of next generation information technology into the
civil engineering curriculum at the department level. The rationale is that civil engineers
have lead roles in infrastructure and environmental systems, and the power of
information technology can be used in design, construction, and operations to relieve
problems of traffic congestion, infrastructure integrity, construction productivity,
environmental monitoring, systems security and other sectors of civil society. To address
this rapidly changing field requires new thinking about the curriculum. Old curriculum
organization, consisting of loosely connected subjects, will not provide the integration
needed for expanding applications of information technology across civil society sectors.
Twenty-first century problems require integration of new technologies and new
approaches to the organization of engineering work, shaped by information technology.

Early application of information technology in engineering education focused on
computer programming, but only a few civil engineers engage in much programming.
Most use software to apply wide bands of technology to problems with highly dispersed
spatial, technological, and social dimensions. Teaching civil engineers how to apply the
methods that underlie the software is a main goal of the integrated curriculum at
Colorado State.